Miniaturized Fiber Optic Chemical Sensors for the In-Situ Measurement of Carbon Dioxide in Plants

The principal investigator proposes to construct miniature fiber optic chemical sensors (FOCS) for the in-situ, nondestructive analysis of gases and liquids in living plants in their microenvironments. This will be accomplished by using remote fiber fluorimetry, a new technology that integrates fiber optics, lasers, chemistry, optics, and spectroscopy. The key to this approach is the FOCS, a fiber optic with a chemically reactive tip at its distal end. Proper selection of the FOCS chemistry provides a sensitive, species-specific sensor. In the proposed research, emphasis will be on miniaturizing these sensors so that they ultimately can be inserted into the tissues of living plants. Phase one will focus on the carbon dioxide FOCS. In phase two FOCS for oxygen and water will be researched. Together development of these FOCS will enable in-situ measurements during photosynthesis.